CICI:UCSS:Securing an Open and Trustworthy Ecosystem for Research Infrastructure and Applications (SOTERIA)

Managing a secure software environment is essential to a trustworthy cyberinfrastructure.
Software supply chain attacks may be a top concern for IT departments, but they are also an
aspect of scientific computing. The threat to scientific reputation caused by problematic software
can be just as dangerous as an environment contaminated with malware. The issue of
managing environments affects any individual researcher performing computational research
but is more acute for multi-institution scientific collaborations as they often preside over complex
software stacks and must manage software environments across many distributed computing
resources. Increasingly, these collaborations and individual investigators have turned to Linux
container images (packing application software, operating system and other needed libraries
into one entity) for their platform portability and scientific reproducibility advantages. However, in
doing so new software sources from both public and private repositories are introduced into the
supply chain, thus bringing new risks. The Securing an Open and Trustworthy Ecosystem for
Research Infrastructure and Applications (SOTERIA) project is an element within NSF's fabric of
coordinated Cyberinfrastructure that helps collaborations avoid security pitfalls while reducing
the burden of scientific software management. SOTERIA aims to provide researchers with
improved discoverability, visibility, and traceability of their software environments.

SOTERIA operates a container registry for open science. The registry has been customized to
meet the unique needs of the scientific environment, including associating the researcher’s
identity with container images, providing image security scanning and introspection (visibility),
and integration with other digital object identification and archiving services. SOTERIA also
operates a container distribution service with tools to trace image provenance through the
ecosystem. Finally, as the challenge of managing secure software environments goes far
beyond container security, SOTERIA provides training and education on best practices tailored
to researchers.